Establishing New Traditions: Revitalizing the Curriculum

This project's goal establishes new traditions in the chemistry curriculum that optimize opportunities for all students to learn chemical facts and concepts, develop and pursue interests in chemistry and chemistry-related disciplines, and appreciate how an understanding of chemistry is important to life and living. We are changing fundamentally the ways students, faculty, and administrators view their roles, creating a student-centered, active-learning emphasis. We have a broad range of reforms, each of which is developed, tested, modified, thoroughly evaluated, and widely disseminated. We address five main areas that apply to all levels of the curriculum: student-focused active learning; inquiry- based/open-ended laboratories; interdisciplinary course clusters to create learning communities; a topic-oriented curriculum; and information technology/computer tools. Each development in each area is carefully evaluated, and only the best survive. Evaluation provides important information about the process of transfer of innovations among institutions of different types. To insure that our reforms are useful for all students, our consortium includes industry, public and private four-year institutions, minority institutions, and two-year colleges. The project gives special emphasis to students who choose teaching as a career option by main-streaming these students in courses which benefit them in both content and pedagogy. Students, including those in Science Education, are fully integrated in the development and implementation of the project, working on both research topics and evaluation. The project also gives special emphasis to community college students in Advanced Technological Education programs to ensure that they are given the newly developed curriculum. The students in the ATE program will clearly benefit by being provided the five main areas of thrust that this coalition is developing. All the Students emerge with greater comprehension and better re tention of chemical knowledge, improved ability to apply chemical concepts to new problems, enhanced appreciation of the relation between chemistry and other disciplines, and skills that enable them to work effectively in multidisciplinary teams.